Radiolaria as Indicators of Productivity in the Norwegian Sea

Foraminifera and radiolaria are unique among zooplankton because they are essentially immotile, they reproduce slowly relative to most of their prey and they produce fossils which dominate much of the world ocean's sediments. Thus, more than any other zooplankton group, these organisms are coupled to a parcel of water and the abundance and composition of their fauna should be indicative of the integrated trophic history of that water. Polycystine radiolaria are the more diverse of the two groups and tend to be more important in high- latitude sediments. Evidence that the radiolarian fauna in the Norwegian Sea responds to changes in production suggests that radiolaria from these waters might be excellent indicators of biological processes at lower trophic levels. The high-latitude radiolarian fauna has never been studied in the plankton during or after a bloom. This proposal outlines a plan to do so by sampling radiolaria quantitatively during several cruises along a latitudinal gradient from the Arctic circle to Spitzbergen and analyzing the radiolarian faunal composition using multivariate canonic analysis and doing morphological studies of skeletons of the major species. The results of these analyses will be used to interpret the response of radiolarian populations to the major bloom event in the Norwegian Sea. This information can ultimately be used to interpret the trophic history of a water mass on a month-to-season time scale and will also provide important information for the interpretation of the ecological significance of the fossil fauna.